Counting Manifolds and Embeddings of Free Groups

The proposed research includes two main projects. The first one, counting
manifolds, is in a sense a continuous analog of asymptotic group theory.
The guiding line is to convert finiteness results about locally symmetric
manifolds, which follow from rigidity phenomenon and arithmeticity, to
concrete quantitative statements. It is closely related to some central
questions in mathematics such as the congruence subgroup problem, and to
the remarkable finiteness theorem of Borel and Prasad, and it has
applications in Riemannian geometry, number theory and theoretical
physics. This project continues earlier work of the P.I. and joint work of
the P.I. with Burger, Lubotzky and Mozes. The second main project concerns
embeddings of free groups into groups with some geometric structure. This
plays a central role in the study of linear and topological groups (in
particular subgroups of Lie groups over local fields), and impacts some
topics in differential geometry, ergodic theory, geometric group theory,
unitary representations and profinite groups. One target, which the P.I.
pursues in collaboration with E. Breuillard, is to obtain an effective
version to Tits alternative, a weak version of which was proved by Eskin,
Mozes and Oh, while solving Gromov's exponential growth conjecture. Other
problems are related to the Auslander conjecture. This project is also
related to the study of dense subgroups of analytic Lie groups, and the
``opposite'' problem of classifying the (analytic) metric completions of a
given countable group.

There are several classical finiteness statement concerning locally
symmetric spaces which have been known for more than 30 years, and yet
have no quantitative proofs, or for which the existing estimates are
suboptimal. One example is the classical theorem of Wang (and its strong
version due to Borel and Prasad) about the finiteness of the number of
manifolds with bounded volume; we would like to have good estimates for
this number. Another example is the fact that the fundamental group of a
manifold with finite volume is finitely presented; the size of a minimal
presentation can be estimated in terms of the volume. More generally, we
study relations between the volume of manifolds and their geometric
structure. The second project deals with free subgroups. In his celebrated
1972 paper J. Tits proved that any finitely generated linear group which
is not virtually solvable contains a non-commutative free subgroup. This
result, known today as the Tits alternative, answered a conjecture of Bass
and Serre and was an important step toward the understanding of linear
groups. Any improvement in Tits' theorem has immediate corollaries in
various different fields of mathematics. The P.I. and E. Breuillard had
recently established a topological version of Tits theorem which answered
several questions in dynamics, Riemannian foliations and profinite groups.